Conference on Molecular Mechanisms of Evolution: to be held February 16-21, 1997, Sante Fe, N M

Powers 9603009 The keystone symposium on molecular mechanisms of evolution will be held at Santa Fe, n. M., February 16 through February 21, 1997. The meeting will consider molecular mechanisms of evolution regulating development, the organization and expression of multigene families, the role of insertion elements in evolution, the functional consequences of evolutionary change in protein structure and ancestral sequence reconstruction among other topics. This meeting will bring together scientists from several disciplines and from all scientific ages in a setting conducive to meaningful interactions.